Molecular Genetics Analysis of Ribosomal RNA in Tetrahymena

We propose to define and analyze the functional regions of the ribosomal RNAs (rRNAs) through a new molecular genetic approach in the model organism Tetrahymena thermophila. Although the rRNAs are extensively studied, very little is known about their specific roles in protein synthesis or other cellular activities. The ciliate Tetrahymena is unique among eukaryotes and eubacteria in containing a single germline copy of the rRNA genes (rDNA). In addition, we have recently developed a transformation method to replace the functional somatic copies of the rDNA with injected, cloned copies. These two properties combined makes Tetrahymena an ideal organism for the genetic analysis of the rRNA. We will construct rDNA clones with specific oligonucleotide insertions and substitutions at 76 positions of the transcribed region, and determine the effect of these mutations by transformation and gene replacement. This study should help us define the functional regions of the rRNAs. We will also characterize the putative peptidyl transferase center of the 23S-like rRNA by constructing and analyzing specific single nucleotide substitutions in this region. Through this analysis we hope to understand the mechanism through which this RNA sequence affects translation. We will also attempt to construct rRNAs with specific temperature- sensitive defects to facilitate future studies. This will be accomplished by inserting modified versions of an RNA sequence possessing self-cleavage activities (e.g. a segment of the plant virus vLTSV RNA) into various sites of the rDNA, and look for clones which confer temperature-sensitive growth defects as the result of rRNA cleavage. Mutations of this type could help us link specific rRNA regions to particular steps in protein synthesis or other cellular functions. The unique characteristics of this system should allow Dr. Yao to specifically correlate ribosomal structure to ribosomal function for the first time. Although ribosomes have been recognized as the cellular site for translation of mRNA into protein, little is known about the mechanism utilized by the ribosome to achieve this. This system promises to illuminate the actual mechanisms involved.